NSF I-Corps Hub (Track 1): Mid-South Region

This I-Corps Hub develops a Mid-South regional innovation ecosystem to drive economic prosperity across the U.S. Mid-South region. The Mid-South Hub’s evidence-driven approach informs how technology-based innovation ecosystems can be established in regions with nascent economic activity. This knowledge will augment team preparation, maximizing the value extracted from I-Corps training. The Hub will further amplify the downstream successes and sustainability of deep technology ventures, including grant acquisition, fundraising, sustainable revenues, and net-positive liquidity events. Team successes will be leveraged to foster an innovation culture at regional institutions, leading to the incentivization of enterprising faculty, students, and staff. The Hub’s leadership team and talented bench of instructors will increase the Hub’s ability to connect to innovators and mentors of all backgrounds and key technology areas. Evidence from the deliberate implementation of a decentralized Hub organizational structure will be evaluated for its capability to encourage and preserve the cognitive proximity of regional ecosystem members. This knowledge will be disseminated to other Hubs via the National Innovation Network to drive translational impacts and economic development, shaping the future of American innovation.

This I-Corps Hubs project is based on the development of a use-inspired incubator that uses data-driven approaches to develop best practices, influence economic policy, and instruct future programmatic investments. Currently, a gap exists in understanding how regional innovation clusters can unify to drive the development of a prolific innovation ecosystem. Addressing this gap will enable policymakers and government agencies to implement evidence-based approaches to inform programmatic investments and maximize technology commercialization, economic development, and overall national innovation readiness. This consortium of diverse, deep technology-producing institutions from disparate locations within the Mid-South region will leverage the I-Corps program to catalyze technological commercialization, spur economic development, and inform the future of American innovation. The Hub will prioritize a formative, longitudinal assessment to iteratively optimize key activities, including team recruitment, Regional and National I-Corps training, upstream changes in university innovation culture, downstream impacts on successful commercialization, and to foster an innovation corridor across the Mid-South. This effort will advance technology transfer from academic institutions into entrepreneurial ventures that seed emergent, regional ecosystems. The data-driven, performance improvement approach will ensure best practices are evidence-based and create a model for other regions seeking to induce inclusive innovation cluster development.